Digitization Operation Deep Freeze Reports

0138125
Wilson

The Naval Support Force Antarctica (familiar name: Operation Deep Freeze) was the major provider of station and field operations, logistics, and direct science support for NSF-funded research in Antarctica from 1954 until 31 March 1998, when the Department of Defense transferred military support of the U.S. Antarctic Program to the U.S. Air Force.

Throughout its 44 years of existence, the Naval Support Force Antarctica produced and published annual end-of-season reports that contain authoritative narratives and statistics regarding its activities. The reports were published on paper; electronic copies do not exist.

A collaboration of the Naval Research Laboratory Library, the Naval History Office, and NSF's Office of Polar Programs assembled a full set of paper copies of the reports. The Document Automation & Production Service, Defense Logistics Agency, will digitize them and make CD-ROM copies. NSF will distribute the CD-ROMs as needed, and the files will be available to the public.